Acquisition of Equipment for Research on High-Level Design of Concurrent Systems

9413420 Hemmendinger Acquisition of Equipment for Research on High-Level Design of Concurrent Systems. The grant will support research in four areas of system design: a) high- level synthesis of digital systems, b) hardware-software codesign, c) combining formal verification with high-level synthesis tools, and d) analysis and design of fault-tolerant network protocols. The equipment to be acquired with the grant includes a lab of high performance workstations, a two-cpu file server, and digital design and test equipment to facilitate rapid prototyping: a FPGA programmer, data-generator and logic analyzers. The software tools for the lab include a VHDL language simulator and synthesis tool, together with experimental tools that are based on VHDL, but give the designer the ability to write specifications directly in the familiar terms of finite-state automata, for rapid exploration of design alternatives. The research in this area will include the refinement of these tools for hardware/software codesign and the development of better metrics of the cost of hardware and software design solutions. ***